Laboratory Training in Anthropological Science

9451940 Galloway This project builds on established success in laboratory-based undergraduate education with an innovative curriculum of training in skeletal analysis, exploiting faculty strengths in this area and potentially bringing high proportions of women and minorities into careers in archaeology, biological anthropology, and related fields. Advanced teaching materials, computer hardware, and software are being incorporated into new anthropology teaching laboratories and now offer undergraduates facilities where they can learn highly transferable techniques, including osteometrics, bioelectrical impedence technology and multimedia packages to study functional anatomy. The curriculum development plan also features 1) "enrichment laboratories" offered in tandem with large lower division lecture courses, 2) intensive exposure to science research practices, and 3) independent research under faculty supervision.